Quantification of Biodegradation in Wood at Inaccessible Locations

This Phase I SBIR project addresses the world wide problem of biodegradation of wood. The research will focus on the use of NDE techniques to test foe the soundness of the wood.